Collaborative Research: Experimental approach to quantifying the impact of local deformation in semi-brittle materials to understand subduction processes.

Subduction zones are regions where one tectonic plate moves below another tectonic plate. Their relative motion leads to deformation that can range from non-destructive slow, creep-like motion to violent earthquakes. How these non-destructive creep events connect with earthquakes is still an unsolved question that is important to solve as it has a direct impact on seismic hazard assessment. While direct observations of deformation in subduction zones are not possible, researchers can listen to the deformation through seismic monitoring. This project will conduct laboratory experiments that simulate the deformation in subduction zones to learn what breaks when and where during deformation. By combining the experiments with monitoring techniques that are similar to seismic monitoring, the study will connect the observed deformation to the signal recorded.

Signals that can be recorded through seismic monitoring document breaking of rocks. The experiments will mix material that can break with material that flows to simulate subduction zones. During deformation the sound that is emitted when parts of the material break will be recorded with acoustic emission monitoring. By changing the location of breakable material in the experiment, the researchers can test how placement and amount of deformation impact the breaking. The outcome of this project will provide better understanding of how material breaks during deformation. This is an essential step to better integrate complex mixtures of materials in computer models that are used to assess earthquake risk. This project will train a graduate student, multiple undergraduate students in geology and science visualization and illustration and give high school students an opportunity to experience research at a university through a summer internship. In addition, parts of this project will be incorporated into classes to give students access to current research.